Undergraduate Research Experiences in High-Pressure Geophysics

9322426 Weidner The Center for High Pressure Research, an NSF Science and Technology Center, was founded in 1991 as a research program to probe the physical and chemical properties of materials with a particular emphasis on the use of high pressure. University at Stony Brook, joined by Princeton University, and the Geophysical Laboratory form the core institutions in the Center. With this application, the Stony Brook arm of the Center (the Mineral Physics Institute) is proposing to expand and formalize an existing summer program which enables selected undergraduates to participate in the excitement of the advances made in this environment. While the research program will be housed at Stony Brook, we will provide an opportunity for the students to visit the other laboratories and institutions involved in the Science and Technology Center. Our goal with the proposed program is to expose a limited number of undergraduates to frontier science with the hope that they will be stimulated to the point of pursuing a career in research science.